CRII: SaTC: Reconciling Run-time Attestation Methods and Real-Time Embedded Applications

Embedded devices are increasingly ubiquitous and their importance is hard to overestimate. While they often support safety-critical system functions, they are usually implemented under strict cost/energy budgets, using Micro-Controller Units (MCUs) that lack security mechanisms akin to those available in general-purpose computers. Unsurprisingly, the insecurity of embedded software has already led to several attacks, including massive denial of service and large-scale exploits. Run-time attestation techniques aim to remotely detect Malware that compromises the execution of software on safety-critical MCUs. However, existent run-time attestation methods preclude MCUs from processing real-time events (e.g., physical inputs, arrival of network packets, or expiring timers) as soon as they occur. On the other hand, real embedded applications are highly dependent on such time-sensitive event processing. Motivated by this problem, this project's novelties are the design and implementation of run-time attestation techniques that can securely co-exist with the real-time needs of MCU applications. The project's broader significance and importance are to reconcile run-time attestation techniques with the needs of realistic applications, bringing run-time attestation closer to practical adoption.

This project develops novel run-time attestation methods to detect run-time attacks while considering the realistic needs of embedded applications. Our approach addresses a major shortcoming of all current run-time attestation techniques: their inability to work in tandem with asynchronous events via system interrupts. This project bridges this gap by (1) characterizing the conflict between existing run-time attestation techniques and embedded applications that must process asynchronous events via interrupts; and (2) rethinking run-time attestation designs to make them amenable to system interrupts while retaining all of their security guarantees. The aforementioned goals are approached from two complementary perspectives: legacy devices that are already manufactured and in which hardware modifications are unfeasible; and future devices, in which clean-slate run-time attestation designs (that include custom hardware changes) are feasible.